Mathematical Sciences: On Monge-Kantorovich Problems

Monge.Kantorovich problems (MKPs) deal with "optimal" correspondences between two or more masses of equal volume given on an abstract space, where the optimality depends upon the context of the problem. MKPs have a long and colorful history in different areas of mathematical sciences since their original formulation by G. Monge (1781) and L.V. Kantorovich (1940). Despite the existence of separate results for particular MKPs no serious attempt has been made to explore the interplay among the various approaches. The objective of this project is to make a systematic study of the relationships between the methods and results in the "continuous case" of MKPs . marginal and moment problems in probability . and those in the "discrete case" . optimization over transportation polytopes and axiomatic approaches to measurement problems. It is the belief of the principal investigators that the algorithms and axiomatic approaches of the discrete case hold great promise in obtaining explicit solutions for continuous MKPs. Symmetrically, the methods of probability .limit theorems, normal and stable models . will lead to the identification of new mathematical programming and game theoretic structures, algorithms and models in the discrete case.